Homotopy-Theoretic Aspects of the Theory of Motives

The goal of this proposal is to develop an analog, in the homotopy
category, of the category of mixed Tate motives which have proved to
be so important in recent developments in arithmetic geometry. The
central idea is to replace the algebraic K-theory of the ring of
integers in the latter subject with Waldhausen's K-theory of the
sphere spectrum. This would explain the appearance of zeta-values
at odd positive integers in both the theory of motives, and as values
of Igusa's Reidemeister invariants in differential topology.

Certain values of Riemann's zeta function are widely conjectured to be
transcendental. These numbers have recently been shown [through work of
Connes, Kreimer, and Marcolli] to play a central and unexpected role
in the theoretical basis for the renormalization techniques fundamental
to perturbative quantum field theory, but WHY they should be so important
is quite mysterious. However, these same numbers are of fundamental
importance in other parts of mathematics, eg in arithmetic algebraic
geometry and in differential topology. Their role in algebraic geometry
has been rationalized by the development of a theory of `motives', and it
seems likely that some version of these ideas can be extended to
differential topology as well. The deep links between topological quantum
field theories and differential topology suggest that this
will lead to a new level of understanding of the geometric foundations
of phyics.